Structure-function Analysis of the KSS1 MAP Kinase in S. cerevisiae

9513713 Courchesne A mutational analysis of Kssl was begun in an effort to genetically separate its dual functions. Site-directed mutagenesis of the KSS1 gene was used to create single amino acid substitutions in the protein. These mutants were then analyzed for Gl-arrest, mating, desensitizing, and in vitro kinase activities. Using this approach, two novel classes of mutant Kssl kinases were generated. Mutants of the first class allow Gl arrest but are defective for desensitization, while mutants of the second class promote desensitization but do not allow Gl arrest. Surprisingly, desensitization occurred in the absence of kinase catalytic activity, suggesting that protein-protein interaction, rather than protein phosphorylation, is required for desensitization. These mutations provide insight into the nature of Kssl 's dual physiological activities, and may define domains important for interaction with substrates, regulatory proteins, or proteins required for proper localization. This research utilizes molecular genetic, biochemical, and molecular modeling approaches to elucidate the molecular mechanisms that allow Kssl to control both arrest and activation of cell proliferation. These studies will be continued by pursuit of the following aims: 1. Mutational and functional analysis of Kssl. The Gl arrest, mating, desensitizing, and in vitro kinase activities of mutant Kssl kinases will be determined following site-directed mutagenesis of the gene using the "Charged-to-alanine" approach within two regions that preliminary studies suggest may regulate either Gl arrest, desensitization or localization. 2. Identification of genes encoding Kssl-interacting proteins. Kssl-interacting proteins will be sought by two distinct methods, first, isolation of "suppressor" genes which can, when mutated, compensate for mutant Kssls that are defective for either Gl cell-cycle arrest or desensitizing activities. (Such suppressor genes should encode either substrates o f Kssl or proteins that regulate Kssl activity or proper cellular localization.) Second, the ability of the mutant Kssls to interact with known components of the pheromone-response pathway will be tested. 3. Biochemical/structural analyses of Kssl. Kssl will be analyzed biochemically and physically, including purification of the wild type and mutant kinases, and development of an alternative in vitro kinase assay. A molecular model of the wild type Kssl will be completed, including incorporating into it the amino acid substitutions that have already been created or will be created as described in the first aim above. The functional results of each mutant will be correlated with those predicted by the model. Mitogen-activated protein kinases (MAP kinases) play important roles in myriad signal transduction pathways controlling proliferation and differentiation. Because of their critical roles, it is essential to understand their biochemical and physiological activities, and identify their substrates and regulators. The KSS1 gene encodes one of two MAP kinases (Kssl) that are required for pheromone-signal transduction. Pheromones are negative growth factors that promote Gl cell-cycle arrest. Kssl has two distinct biological activities. Kssl can promote Gl arrest in response to pheromones. Kssl also promotes a return to proliferation of Gl-arrested cells, a phenomenon called desensitization. Although inconclusive, some data suggest that MAP kinases in higher eucaryotes exert a feedback control on their pathways by phosphorylating upstream protein kinases; however, none have as yet been shown to have the clearly defined role in desensitization described for Kssl. A detailed understanding of how Kssl can both turn off and turn on cell proliferation is important in understanding control of proliferation in all eukaryotes. ***